Engineering Research Equipment: A Pattern Generator

9310722 Lee This equipment will be used for several research projects, including: (1) development of a disposable microfermentor chip; and (2) development of a sensor for rapid counting and characterization of viable cells. ***